Visual Speech Display as an Articulation Training Aid for the Deaf

The goal of this proposal is to develop a computer-based visual display to teach articulation to hearing impaired children. Speech will be analyzed to discriminate phonemes, and then the phonemes will be encoded to provide pleasing and interesting feedback to the subjects. Psychophysical experiments will be conducted to determine to what extent speech can be discriminated and identified based on the display. The project should contribute to speech analysis, and if successful, it will also have a significant impact on the training of hearing-impaired children.